Experimental Particle Physics

This award covers Experimental Elementary Particle Physics research by a group at the University of Rochester in collaboration with other NSF and DOE supported scientists. The group will conclude its studies of energetic photons produced at large angles in high-energy pion and proton- nucleus collisions. They will compare the observed photon yields with Quantum Chromodynamic calculations within the standard picture of interacting quarks and leptons. The group also will study proton-antiproton collisions at the highest accessible energies to test extrapolations of Standard Model predictions. The expertise of this group in calorimetry and detector construction will contribute to preparations for experiments at the Superconducting Super Collider (SSC).